Center for Computational Materials Design (CCMD)

The Industry/University Cooperative Research Center for Computational Materials Design joins Penn State and Georgia Tech to substantially impact progress towards systems-based materials design by promoting research programs of interest to both industry and universities, to enhance the infrastructure of computational materials research in the nation, to explore and extend the interface between engineering systems design, information technology and physics-based simulation of process-structure and structure-property relations of materials, to improve the intellectual capacity of the workforce through industrial participation and conduct of high quality research projects, and to develop curriculum in computational and systems design aspects of materials.